ITR: Synthesis of Adaptive Mission-Specific Processors

The objective of this project is to develop the design methodology, software tools and programming environment for the automated synthesis of Mission-specific Processors (MSPs) based on the Morphosys architecture developed at UC, Irvine. Because their hardware design is not tailored to the application(s), generic embedded processor architectures make inefficient use of area and power. ASICs on the other hand cannot be updated to accommodate different algorithm improvements. By allowing a set of target applications to dictate the architecture, MSP designs incorporate the necessary components and interconnections to optimize the performance of a specific suite of programs. The synthesized architecture is dynamically reconfigurable and supports a retargetable compiler to incorporate algorithm enhancements or changing task specifications. The proposed approach relies on the compilation of a program expressed in a high-level algorithmic language into a data-flow graph (DFG) format and from that format into VHDL. This technology has been developed as part of the Cameron Project at Colorado State University. A new MSP design framework will be developed to incorporate constraint-based MSP synthesis and estimation as well as compilation support for the synthesized architecture.